Classical and Quantum Descriptions of Chaotic Dynamical Systems

The project explores a broad class of problems involving non-linear, strongly coupled or perturbed systems. In all of these problems, analytic solutions are typically absent and boundary conditions and geometry play a major role. Systems to be explored include Rydberg atoms in strong electromagnetic fields and ballistic electron transport in microstructures. As always the object is understand how the quantum world mirrors the phenomenon known as classical chaos.